PRISM: A Laboratory for Research in Future High-Performance Parallel Computing

This infrastructure award is for the acquisition of a SIMD and a MIMD parallel computer for the support of research in the areas of parallel programming tools, programming languages, databases, parallel optimization algorithms, scientific computing, computer architecture, artificial intelligence, and models of parallel computation. The research will involve both the development of algorithms specific to the SIMD and MIMD architectures and the use of these computers as compute servers over the departmental network. The next development in high performance computing will be high speed parallel processors. There are currently two main classifications of these processors-Single Instruction Multiple Data (SIMD) and Multiple Instruction Multiple Data (MIMD) processors. SIMD computers execute a single sequence of instructions on all of its processing elements. Each processing element may have different data that it is processing. A MIMD computer may have a different program running on each of its processing elements that may have their own data. In order to develop the software necessary to utilize these computers it is necessary to have in place software tools that support instrumentation, program development, and resource allocation. The development of such tools is supported by this infrastructure. It is also important to determine which problems run best on which type of processor. Thus these computers will be used in research in artificial intelligence, databases, and computer architecture in determining efficient algorithms for these problem domains. Finally, these computers are efficient numeric processors and will be used for both scientific computing and numeric optimization problems.